U.S.-Mexico Cooperative Research: Hydrolysis of Phosphate Esters of Theoretical Study

This award will support the quantum chemical group of Professor Ludwik Adamowicz of the University of Arizona in collaboration with the geophysics group of Professor Ivan Ortega-Blake of the Institute of Physics of the National University of Mexico (UNAM) at Cuernavaca. The aim of the research is to study various elemental chemical processes related to phosphate-bond hydrolysis in order to better understand the crucial biological process of phosphate-bond hydrolysis as a source of bioenergy. The development of high-level theoretical methods for molecular electronic structures, as well as advancements in the theory of molecular interactions, have always been related to progress in computing technologies, both in hardware and software. At present, accomplishing the solution of the Schrodinger equation for molecular systems with the number of electrons exceeding one hundred is potentially feasible. This would allow the study of molecules and processes of biological interest such as the hydrolysis of phosphate compounds. For these systems, besides the accurate ab-initio calculations, it is necessary to extend the theoretical models to include collective effects of condensed media via numerical simulations. For this research,the theoretical methodologies developed by both groups are complementary and, when combined, will become a more powerful tool for theoretical explorations. The expertise of the Arizona group lies in advanced quantum chemical techniques for determining molecular electronic structure and inter- molecular interaction energies. The strength of the Mexican group rests on computer simulation techniques and determination of the macroscopic properties of gas and liquid phases. Ultimately, both groups share an interest in biologically relevant processes.